RUI: Pigment Granule Dispersion in Teleost Retinal Pigment Epithelium: Cholinergic Mechanisms

The proposed research looks at what happens when light hits the eye.
Research will examine what happens when the eye adjusts to changing light
levels and how that information is transmitted between the retina and the
retinal pigment epithelium (RPE). It will zero in on tiny chemical
messengers used by the retina to communicate with the RPE. The RPE is a
thin layer of tissue located next to the retina.

The researchers will use fish eyes as a source of tissue for these studies.
Unlike human eyes, fish eyes have pupils of fixed diameter. Fish don't
adjust to changing light by dilating or constricting their pupils the way
people do. Instead they rearrange their light-sensitive photoreceptors and
the pigment granules in the RPE to get just the right amount of light to the
photoreceptors, rods or cones, best suited for the job. In the light,
pigment granules in the RPE spread out into finger-like extensions that
interlace with the rods and cones. These rearrangements let the RPE shade
the rod photoreceptors, which are specialized for night vision, while still
permitting the cone photoreceptors, bright light and color vision
specialists, to detect light.

This study will examine the receptors through which acetylcholine, one of
the tiny chemical messengers, operates. Receptors are like little antennae
found on the surface of cells, and they detect specific chemicals in their
environment. There are many different types of receptors for acetylcholine.
Each detects acetylcholine, but each has a different effect on molecular
signals inside the cell. This study will use chemicals that either mimic or
block acetylcholine to figure out what type of receptor is involved in
pigment dispersion. This research will illuminate a novel signaling pathway
for light adaptation, enhancing understanding of how the eye works.